Mathematical Sciences: Undergraduate Mathematics Summer Research Institute

Site: SUNY Potsdam,(joint program with Clarkson University). Group Theory, Applied Graph Theory, Geometry/Geometric Topology, nine students, eight weeks. Contact Kazem Mahdavi, dept. of mathematics, SUNY Potsdam, Potsdam, NY 13676; telephone 315 267 2094; e-mail [email].